Studies of Interstellar Processes

AST-9619429 Studies of Interstellar Processes. Dr. Bruce Draine's research focuses on improving the microphysical basis for modeling interstellar processes. With this award he will carry out theoretical investigations into the alignment of interstellar grains, grain optics, photodissociation regions, and magnetohydrodynamic shock waves in diffuse interstellar clouds. =========================